Educational Materials Development for Enhanced Understanding of Thermodynamics Concepts

The objective of the project is to design and fabricate a low-speed internal combustion engine and associated measurement systems for real time visualization of thermodynamic processes. The prototype engine addresses a significant need in teaching fundamental thermodynamic processes. It provides means to demonstrate typically non-intuitive or abstract processes, i.e. the processes associated with an internal combustion engine. The system is designed to provide maximum control of input variables with both display and computerized acquisition of all parameters. This standalone tabletop system provides real-time class demonstrations to courses such as thermodynamics, and captures the primary input/output information that characterizes the system. The physical demonstration system is used by instructors in high school, technical or university settings.